A Multiconductor Modeling Engine Employing a Monte Carlo Algorithm

The goal of this research is to study the Monte Carlo simulation technique implemented using parallel processors for solving problems of any complex geometry. Comparisons are also made against standard technique, such as the finite difference and finite element methods. A prototype model, built using low cost transputers, is currently under development. An investment in massive and inexpensive processors is of significant importance in solving a large class of problems in field theory, weather processing, nuclear science, thermodynamics, and other areas. The approach proposed can help solve engineering and manufacturing problems and present an important application for large scale parallel processors.